Undergraduate Materials Science Laboratory

9451043 Short This project concerns the design and development of a required undergraduate materials laboratory course. The course will serve as a corequisite to the presently offered materials science course. Therefore, the Department of Mechanical Engineering curriculum will be strengthened by changing its materials science course from a lecture-only mode to a lecture-laboratory mode. The course will emphasize the processing-structure-properties-performance relationship of materials in engineering. Approximately 30-40 students per semester will be affected.